Joint Proposal for Equipment to Connect to SURAnet

9521940 McFarling The Kentucky Wesleyan College requests support from NSF for a connection to the Internet through the SURAnet regional network. SURAnet is the regional network located in the state of Kentucky that will provide operations and network information services. It will provide the Southern College of Optometry with a connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The college needs the Internet connection to be able to access information resources throughout the state, the nation nd the world. The connection will benefit the students, faculty and staff of Kentucky Wesleyan College and Brescia College.